Course Improvement in Artificial Intelligence and Robotics

This project supports undergraduate education in artificial intelligence an robotics at this institution. A high quality, modern course is offered in a liberal arts context so that students become knowledgable in a field that is critical to the nation's manufacturing systems. The equipment that supports this project includes: a high-speed dedicated computer system with image digitizer, TV camera, robot arm and expert systems and robotics software. This award is being matched by an equal sum from the grantee.